Charter Party Agreement for the R/V Wecoma

9630593 DALRYMPLE The NSF-owned Research Vessel WECOMA has been operated under a charter party agreement by the Oregon State University since it was put into service in 1975. This project extends the University's operation of the WECOMA for five years under an updated, modified charter party agreement. ***